Distributed Methods for Controlling Multiple Mobile Robots

9307506 Suzuki This is the first year of a three-year continuing award. The research is a theoretical investigation on the fundamentals of distributed robot control, to help identify those problems for which the distributed approach is effective. The theory and techniques should also be useful in future development of algorithms whose performance is mathematically predictable. The main feature of the method is to let each robot execute a simple algorithm and determine its movement adaptively based on the given goal and the observed movement of other robots. This work is a step toward the ultimate goal of determining exactly what classes of problems are solvable by the distributed approach. The Office of Navel Research is expected to provide funds separately for this project, starting in Fiscal Year 1994, at approximately the level of the NSF award.